Integration of Exercise and Investigative Techniques to Study Physiology

Over 10 years ago, the development of the biology curriculum began with the establishment of a new course, Methods in Biological Research, and the institution of a research curriculum. Our investigative approach emphasizes creativity, critical reasoning and problem solving, integration of writing, mathematical and processing skills, and self-reliance. However, this program is at a very critical stage: outfitting the physiology laboratory with up-to-date, reliable, and computerized equipment. This project funds the purchase six computerized physiology workstations. Students are being provided with quality and reliable equipment and moving forward with the research curriculum. The laboratory experience is taught from an investigative perspective that utilizes exercise as a stress to extend and integrate basic physiology. The foundations of physiological control mechanisms are provided during the lecture course, while the lab experience emphasizes understanding the effects of acute and chronic exercise on several body systems. Student-driven experiments test the effects of exercise on several systems. During the final weeks of the course, students plan and conduct research experiments, analyze data, and present their findings at the Annual Physiology Poster Session. This project enables the university to incorporate computerized data acquisition techniques and to develop scientifically and computer-literate citizens of tomorrow.